SHF: Small: Usable Verification using Rewriting and Matching Logic

Computers, and implicitly programming languages, are used in many
critical applications these days, where correct behavior is necessary.
Rigorous, formal semantic definitions of the employed programming
languages are therefore necessary in order to verify computing systems.
Unfortunately, in spite of more than forty years of research in
programming language semantics, most program verifiers are not directly
based on a formal semantics, but rather on complex and ad-hoc hardwired
models of their target programming languages. This has at least two
negative consequences: first, it makes the development and maintenance
of program verifiers hard and uneconomical, particularly for new
programming languages or languages which evolve fast; second, it allows
room for subtle bugs in program verifiers themselves. This research
project aims at developing a generic program verification framework
that takes a programming language given through its formal semantics as
input, and yields a program verifier for that language as output.
Moreover, the language semantics will be executable, so testable,
and public, so will serve as a reference implementation for the language
and as a formal basis for language understanding.

Specifically, this projects builds upon recent advances in matching logic
and its use for verifying reachability properties. A language-independent
sound and relatively complete proof system takes a programming language
operational semantics as a set of axioms, and can be used to derive
any reachability property about any program in the given language. This
is in sharp contrast to the existing verification approaches based on
Hoare logic and on dynamic logic, since these approaches are
language-specific. This research will therefore lead to the development
of semantic and verification techniques and algorithms that will work for
any language, provided a formal semantics of the language is given.
Consequently, the broader impact of this research is that it will increase
the quality and robustness of software systems, and will narrow the gap
between the specification and the implementation of computer systems.